U.S.-Panama Cooperative Research: Using Ecological Insightsin Search of Biologically Active Compounds from Rainforest Plants

9603073 Capson This Americas Program award will fund a collaborative research project between Dr. Todd Capson, University of Utah and Drs. Mahabir Gupta and Pablo Solis, University of Panama. They will conduct a search of biologically-active compounds from plants in the rainforest of Panama. The scientific goals of the project are to examine the efficacy of ecological insight for finding novel natural products with biological activities. Rainforest plants are subject to greater levels of attack by insects and pathogens than are plants from any other region of the world. As a consequence, they have evolved both higher levels of chemical defenses as well as a greater diversity of compounds. Mmst studies on the chemical defenses in rainforest plants have been done in easily collected mature leaves, but recent studies show that expanding leaves are better defended chemically than mature leaves. To optimize the discovery of biologically-active compounds, the researcher will be using leaf collections that have been guided by ecological insight into plant defenses, rather than by random collections of plants. Extracts from freshly collected leaves will be subjected to a broad panel of biological screens, and those showing significant biological activity will be subjected to bioassays to determine their individual components and structure. To assess the efficacy of the ecologically- directed collections, random collections will also be made, and their extracts will be subjected to the same bioassays as the targeted collections, to allow for a direct comparison. Although some of these biologically active natural products could be medicinally-relevant compounds, most are likely to be invaluable tools for researchers in disciplines such as neurobiology, cell biology, biochemistry and physiology. Results from this work will provide information that will guide future studies directed towards the discovery of these products. The knowledge of the Panamanian scie ntists about the rainforest flora of the country, and their expertise in the use of modern techniques for vegetative identification of plants, will be an important contribution to this study. ***